Laser Experiments for Physics Majors

The Department of Physics is using laser physics and spectroscopy to enhance student understanding in optics, quantum mechanics, and atomic physics. Experiments in interference phenomena, use of a spectrum analyzer, the investigation of longitudinal and transverse laser modes and absorption laser spectroscopy are being done.